RUI: Membrane Insertion Regions Involved in the Ion Channel Activity of Bacillus thuringiensis CryIIIA

9600810 Walters A group of related experiments which will further our understanding of the ion channels produced by Bacillus thuringiensis (B.t.) delta-endotoxins is proposed.